Conference: AI-Driven Solutions for Sediment Transport: Bridging Science, Engineering, and Innovation

Solid particulate matter that is transported by water, wind, or ice is called sediment. Transport of sediment in nature and in the built environment has many effects on human wellbeing. It shapes river deltas and flood plains, affects shipping along waterways, and affects life of dams. Recent advances in Artificial Intelligence (AI) have created powerful tools to analyze sediment transport. AI makes it possible to combine data from multiple sources such as satellite images, local measurements of turbidity in rivers, and direct sample collection from lakes. Combining these data can improve predictions of where and how much sediment will deposit. This project will bring together experts in engineering, Earth science, hydrology, geomorphology, and data science. The goal is to identify research priorities for using AI to improve sediment management. This project will contribute to protecting water resources, extending the life of infrastructure, and strengthening national resilience.

This project will organize an interdisciplinary workshop to advance Artificial Intelligence (AI)-based approaches for sediment transport research and engineering. The workshop will be held adjacent to the annual meeting of the American Geophysical Union in December 2026. Participants will focus on three research areas: (1) improving sediment transport prediction using machine learning; (2) combining remote sensing, field observations, and real-time data with AI; and (3) developing hybrid models that integrate physics-based and AI-based methods. The workshop will address scientific and engineering challenges, including estimating sediment loads, predicting changes in river channels, understanding hillslope erosion, reducing reservoir sedimentation, and improving sediment management. Participants will also discuss AI applications for image-based sediment monitoring, automated sediment analysis, deep learning for river and landscape change, and managing water infrastructure. The workshop will bring together experts in hydraulics, hydrology, geomorphology, computational science, and data science. Participants will identify key research gaps, define priorities for future studies, and recommend ways to integrate AI into sediment science and engineering. A community-developed research roadmap on AI-enabled methods for sediment in river and coastal systems will be made publicly available after the workshop. The workshop will engage early-career researchers through the Mentoring Institute for Sediment Transport Researchers.